Mathematical Sciences: The Probabilistic Behavior of Sums and Quadratic Forms

WPCJ 2 B P Z Courier 10cpi 3| x K x 6 X @ 8 ; X @ HP LaserJet IIID - BACK HPIIIDB.PRS x @ , \ , j 5{X @ 2 < V J Z Courier 10cpi ? x x x , {^ x 6 X @ 8 ; X @ HP LaserJet IIID - BACK HPIIIDB.PRS x @ , \ , j 5{X @ 2 6 8 F ` H < 3| x 3 ' 3 ' Standard 3 ' 3 ' Standard rJet IIID < 9310263 Klass The investigator proposes to study sums of independent random variables and quadratic forms. The topics envisioned include strong limit problems, approximation of expectations for sums having a fixed or random number of terms, approximation of tail probabilities of sums of independent variates, and decoupling issues for quadratic and multilinear forms. This is research in basic probability theory. In particular, the investigator will study sums of independent random variables and probabilities associated with those sums. ***